Meshfree particle methods for analysis of elastic plates and shells

A large number of structural components in engineering can be classified as
plates. Typical examples of civil engineering structures are floor and
foundation slabs, lock-gates, thin retaining walls, bridge decks, and slab
bridges. Plates are also indispensable in ship building, automobile, and
aerospace industries. The stress resultants of a thin plate can be calculated
through the 3-dimensional elasticity equations. However, under certain
hypotheses, the 3-dimensional elasticity equations for a plate are reduced
to the 2-dimensional equations. The Kirchhoff plate model is well suited for
thin plates. However, the governing equation for the displacement of this
plate model is the fourth order differential equation. The conventional finite
element method is difficult to apply because of the complexity of
constructing smooth finite elements. Furthermore, moderately thick plates have
other difficulties such as boundary layer problems and shear locking
problems.

Meshless methods (in which smooth flexible approximation functions are used
and complicated mesh generation is not necessary) have several advantages
over the conventional finite element method. However, these methods have
several major limitations including the inefficiency in handling essential
boundary conditions, large matrix condition numbers, and complexity in
constructing partitions of unity. Most recently, the PI invented one of the
most flexible closed form partition of unity, called the Generalized Product
Partition of Unity. The PI proposes to introduce Meshfree particle methods
by using the Generalized Product Partition of Unity, together with new local
approximation functions that can handle geometric boundary conditions as well
as force boundary conditions arising in various plate models. Furthermore,
the PI proposes to apply Meshfree particle methods to obtain highly
accurate stress analysis of plates and shells for design and maintenance of
related engineering structures.

The Intellectual Merit: The proposed research will greatly improve the stress
analysis of plates, shells, and laminated composite plates so that design and
maintenance of automobiles, airplanes, ships, and all other engineering
structures related to plates and shells may be more effective and safer.
Moreover, without any difficulty, the proposed method is able to surgically
make the approximation space enriched with any type of singular function.
The proposed method is flexible and effective in dealing with singularities
and it can be used for accurate prediction of crack propagation.

The Broader Impacts: Results from the proposed research can be used to design
fuel efficient automobiles, safer airplanes, ships and new materials more
resistant to failure. The proposed research can also be applied to improve
maintenance of aging airliners, bridges, ships, buildings, and numerous other
applications where structural integrity should be closely monitored.
Ultimately, the proposed research will have direct impacts on the public
safety and the environment by increasing efficiency and safety of common
modes of transportation and structures used everyday.